MRI: Acquisition of an integrated atomic force microscope/ Inverted optical microscope for interdisciplinary research at Cleveland State University

1337859
Kothapalli

The proposed instrument will support a broad range of cutting-edge and innovative research
projects spanning five disciplines (Biomedical, Chemical, Electrical, Physics and Chemistry)
at CSU. This integrated instrument is of great value to a growing core of CSU faculty
whose research portfolios encompass: novel materials for biomedical, electronics and energy
applications, biosensors, thermo-responsive polymers, nano-scale systems, biomechanics of
soft materials, and live imaging of cellular/ sub-cellular features under physiological conditions.
The projects that will benefit from extensive access to the proposed equipment include:
(i) Structural and mechanical properties of soft materials, (ii) Mechanotransduction effects
on stem cell differentiation, (iii) Characterization of chemically-selective and biocompatible-chemistry
for biomolecule, biomaterial and living-cell modifications, (iv) Design, synthesis and evaluation
of cell-surface mimetic molecules for biomedical applications, (v) Characterization of functional
molecular building blocks for responsive materials, (vi) Image analysis of primary cilium
in living cells, (vii) Characterization of hybrid strategies for fabrication of nanostructured
arrays, (viii) Characterization of nano-textured metallic substrates for bone tissue engineering,
(ix) Investigation of nano-porous anodized alumina templates and membranes for hydrogen storage,
and (x) Improving the stability of immobilized enzymes for bioelectronic applications.